Patterns of Disturbance, Reproductive Effort and Succession Across a Depth Gradient in a Southern California Kelp Forest

Since 1982, the California coast has seen an extraordinary number of very large scale disturbances in kelp beds. These resulted from the El Nino storm season of 1982-83, the very warm summer-fall seasons of 1983 and 1984 associated with the El Nino, the amphipod infestation of 1985, and the 200 year storm of 1988. During this period, a number of the algal successional processes were very different from what was observed during the 1970s. Data indicate that a major gap in understanding of the kelp forest's response to disturbance was information regarding the role of kelp reproduction during succession. This research project thus provides will allow controlled fertilizer experiments to test the role of nutrients in reproductive effort. An understanding of the parameters regulating kelp reproduction should explain many of the successional differences observed. The importance of long term ecological studies is becoming increasingly obvious to the understanding of disturbances of different scale and of kelp forest structures, some of which have persisted since 1971.